Acquisition of a 600 NMR Spectrometer

This proposal requests partial funding to purchase a 600 NMR spectrometer that will be used by ten major users and seven minor users. The spectrometer will support a variety of research, ranging from NMR studies of protein-nucleic acid and peptide- metal complexes to determinations of the structures of intermediates in organic and biological synthesis of biomolecules. The sensitivity and resolution of this instrument will significantly enhance the type of information that will be obtained from biomolecular NMR studies. Joint support from the Instrumentation and Instrument Development and Chemical Instrument Programs is recommended.